Biomaterials: Cellular Response to Implanted Materials

9402824 Skalak This proposal from University of California at San Diego requests partial support to conduct a conference entitled Biomaterials: Cellular Response to Implanted Materials. The symposium focuses on integration of the structure and surface properties of implants form the standpoint of the cellular level responses of biological tissues to non- biological materials and to survey current clinical rehabilitation needs in regards to the performance of implanted biomaterials. The aim of the conference is to bring together materials scientists, cell biologists and practicing clinicians in rehabilitation medicine. %%% Presenter participants in the symposium are world leaders in biomaterials, cell biology, and clinical rehabilitation medicine. Funding requested from the NSF would provide partial support for invited participants. The results of the conference will be recorded in a Proceedings, which will be sent to all conference participants and to related organizations and agencies, thereby making symposium results available to a large audience. ***